Research Experiences in Psychophysiology

This award provides funds to the Department of Psychology at The Pennsylvania State University to establish a Research Experiences for Undergraduates Site. Eight undergraduate psychology majors with an interest in the biological aspects of experimental psychology will be recruited to participate in this program at the completion of their sophomore year. An effort will be made to attract a majority of minority students using the techniques and contacts which have enabled the Department to train 40 minority Ph.D.s since 1969. The students selected will work as apprentices with one of five members of the faculty, all nationally known for their research and all highly experienced at training graduate students and undergraduates who have gone on to graduate school. Last year these same five faculty members received a large equipment grant from the U.S. Department of Education. Therefore, the facilities available in these laboratories for research and training in psychophysiology are the equal of any university in the country. Faculty mentors will work full-time with these students during the summer after their sophomore year, gradually exposing them to all aspects of psychophysiological research. Students will begin an independent experiment during the latter part of the summer and complete it with the help of their Penn State mentor during their junior year. Near the end of their junior year the students will present their research at a department colloquium.